Systemic Teacher Excellence Preparation: The STEP Project

Systemic Teacher Excellence Preparation, STEP, project The STEP project is designed to bring about large scale improvement in the preparation of science and mathematics teachers in Montana and to serve as a national model for rural areas with significant minority populations. STEP is developing new alliances that form a statewide, interactive network consisting of school systems, Tribal Community Colleges (TCC's), state Universities and Colleges, the State Office of Public Instruction, the Montana Council of Teachers of Mathematics, the Montana Science Teachers Association, the Montana University System and a number of related on-going NSF supported projects in the state: the Systemic Initiative for Montana Mathematics and Science (SIMMS), Six Through Eight Mathematics (STEM), and the Alliance of States Supporting Indians in Science and Technology (ASSIST). The project is providing the following: at least 2 years of early career support for mathematics and science teachers in a rural setting; model teacher preparation field sites in K-12 schools; increased numbers and better preparation of mathematics and science teachers from Native American Communities; a telecommunications network based model for fostering teacher preparation in rural states; strong faculty teams to redesign curricula and courses; strong institutional support for participating faculty and teachers; dissemination of new ideas in preparing teachers; an increase in the number of women and minority teachers in mathematics and science; and use of field sites as "living laboratories" for research on effective mathematics and science teaching, pre-service teacher supervision and the training of university science and mathematics educators in rural settings.